Mathematical Models in Cognitive Psychology

The purposes of the models to be studied are to explain cognitive phenomena and to contribute to efforts in artificial intelligence to build machines that learn. The research will compare computational models developed in the classical information- processing framework with adaptive network models. Three kinds of phenomena will be of special interest. (1) Classification and category learning: An example is learning to classify parts of speech, an essential component of the ability to parse sentences during language processing. The learner must cope with fuzzy sets, that is, sets defined only in terms of combinations of properties that are probabilistically related to categories. A central question is why this kind of learning is particularly difficult. In the models to be tested, the answer appears to lie in limitations on people's capacity for selective attention to the most relevant of a large number of properties and in the hazards of partial success, that is, the tendency to accept a partial solution to a classification problem when better ones are available. (2) Recognition: The frequency of false recognitions is a major problem in many domains: In the health area, false diagnoses of diseases are apparently unavoidable; in navigation, actually new locations or scenes are falsely recognized as having been previously encountered; eyewitnesses to crimes claim to recognize actually innocent suspects. Research in this project will evaluate the hypothesis that the explanation of false recognitions has the same locus as that of difficulty of classification. (3) Decision: When selecting among alternatives, as in investment, vocational choice, or games of strategy, people often suffer the consequences of choosing an alternative with a high short-term payoff when others would yield much larger long-term payoffs. In the theoretical analysis, decision making of this kind will be interpreted as a combination of processes of recognition and classification.